Postdoctoral Research Fellowship in Plant Biology

This award funds a postdoctoral research fellowship in plant biology for two years. The project entitled "Molecular mechanisms of anti-microtubule herbicide binding to plant tubulin" is to be carried out in the laboratory of Dr. Louis C. Morejohn at University of Texas, Austin. This represents a significant change in the field of research for this Fellow whose Ph.D. training was in chemical synthesis of metal-binding proteins. The focus of the postdoctoral project is the role of microtubules in corn and soybean. The postdoctoral fellowships in plant biology are designed to increase the number of outstanding young investigators in plant biology.